Development of Reciprocal Attachments

9320364 HAZAN ABSTRACT During infancy and childhood, parents typically serve as an individual's primary source of emotional support and security. In adulthood, a peer--usually, the relationship partner--becomes the primary source of security and support. Thus, in the normal course of development, these basic social needs are transferred from parents to partners. There has been much research on the parent-child bond and, in recent years, an increasing amount of research on adult-adult bonds. However, little is know about the processes by which emotional attachments are transferred, nor about how emotional bonds are formed between adults. It is a well documented fact that relationship experiences in one's family of origin influence the quality and course of subsequent relationships. Previous research has established that problematic parent-child relationships put individuals at increased risk for a host of negative outcomes, including diminished productivity in the work place, drug and alcohol abuse, and impaired psychological and physical health. Understanding the developmental transition whereby individuals establish emotional attachments outside their families of origin has obvious theoretical as well as practical importance. This project will investigate the transition by studying an ethnically and socioeconomically diverse cross-section of children, adolescents, and adults for a period of 4 years. Previous work by the investigator forms the basis of a model of this transition which will be tested in this research. If this model proves to be correct, the thoughts, feeling, and behaviors that eventually lead to well- or poorly-functioning adult relationships may be evident in early childhood. The results of the project promise to contribute to our understanding of the developmental course, underlying processes and mechanisms, and the timing of a critical milestone in human life.